Technician Support: Gas-Source Mass Spectrometry Laboratories - Phase II

0002134
Quade

This award provides partial funding for the support of a technician to oversee operation and maintenance of the gas-source mass spectrometry laboratory in the Department of Geosciences at the University of Arizona. The mass spectrometers in the laboratory are essential research tools for several faculty and their students at the University of Arizona. The research dependent on isotopic analyses conducted by this group includes study of hydrothermal fluid-rock interactions, igneous petrogenesis, ground water and low-temperature fluid-rock interactions, ecology and paleoecology, biogeochemistry, and paleontology. The primary responsibilities of the technician include operation and maintenance of two mass spectrometers and gas extraction lines and training and supervision of users of the facility.
***